MRI: HIPerWall: Development of a High-Performance Visualization System for Collaborative Earth System Sciences

This project, developing a Highly Interactive Parallelized Display Wall (HIPerWall) new visualization facility, aims at advancing the state of Earth Science modeling and visualization. HIPerWall is a high performance visualization system with a wall-sized ultra high-density tiled display that operates at the perception threshold of the human eye, allowing researchers to view and manipulate their data sets at resolutions commensurate with large-scale grids or dense sensor network data. The facility will be able to display extremely high-resolution datasets that will drive and provide focus for on-going research into management, transfer, and visualization of terabyte-scale data. By rapid, visual comparison of theory with experimental data, scientists should be able to swiftly validate and comprehend theory and practice. Although the proposed research is focused on Earth System Sciences, other research areas will benefit, including,
Computational Fluid Dynamics
Direct numerical simulation of turbulent chemically reacting and dispersed 2-phase flows,
Engineering Mechanics
System identification using 3D video tracking;
o Microwave imaging for damage visualization;
o Remote system monitoring,
Structural and Earthquake Engineering
o Advanced scientific visualization of dynamics of systems;
o Model-based simulation of experimental data from large and medium scale earthquake testing;
o Analysis of large-scale earthquake field data,
Materials and Devices
o Molecular modeling and visualization;
o Synthesis of structural materials and composites;
o Mathematical modeling of advanced materials and processes;
o Material characterization,
Embodied Interaction in Immersive Systems
o Novel sensor technologies and modes of interaction for cultural and technical applications,
Scientific Computing,
o Large scale data visualization;
o Storage, compression and access of stored real time simulation data;
o Image based rendering;
o 3D data reconstruction, and
Biomedical Engineering
o Computer simulation and tissue engineering;
o Imaging and image understanding.

Broader Impact: The facility, to be set in a large classroom, directly contributes to education through courses and recruiting efforts. The display wall benefits collaborations that have impact on areas such as homeland security and emergency response.